Mathematical Sciences: Theory of Probability Metrics

This award will support a graduate student to work with the senior investigator in the area of probability theory called probability metrics. The theory of probability metrics deals with the study of distances in the space of probability measures and random elements, interrelations between metrics of different types, the choice of an appropriate metric for a given stochastic approximation problem, the characterization of induced convergences and uniformities, and applications to limit theorems and stability of stochastic models. The aim of the investigator's work is to study and develop the theory of probability metrics in a systematic fashion. The theory of probability metrics seems to have quite a large area of applications: limit theorems for sum and maxima of random elements, characterization of distributions, queueing theory, risk theory, survival analysis, mass transportation, infinite dimensional network flow problems, and stability of stochastic models.